Quark Matter '95: International Conference on Ultra-Relativistic Nucleus-Nucleus Collisions to be held on January 9-13, 1995, in Monterey, California

9423753 Rai This grant will provide partial support for 30 graduate students and postdocs to attend the 11th International Conference on Ultra- Relativistic Nucleus-Nucleus Collisions, Quark Matter '95 to be held on January 9-13, 1995, at the Monterey Conference Center, Monterey, CA. This is a major conference in a new thrust area for Nuclear Physics and about 400 scientists are expected to attend. The conference will concentrate on recent results from experiments at BNL and CERN, theoretical advances and future plans for work at RHIC and LHC. ***